Open Archives: Distributed Services for Physicists and Graduate Students (OAD)

The project will build on established activities exploring new modes and mechanism for scholarly communication. In particular, the project will draw on existing efforts of the Networked Digital
Library of Theses and Dissertations (NDLTD) and the Open Archives Initiative (OAI). The NDLTD promotes student production and submission of their own electronic theses and dissertations - in many
different natural languages. This project will pursue metadata standards and tool building for searching the distributed, multilingual, large-scale collection. The collaboration with the University of Oldenburg will focus on PhysNet, an existing service which collects physics papers and scholarly materials from the Web